Industry-School Collaboration: Products, Processes, and Technology in the Elementary School Curriculum

Simmons College is being supported in a project to improve elementary school science education through the collaborative efforts of teachers, administrators and representatives from local industry. In a series of summer residential workshops and academic year follow-up activities, they propose to assist 120 teachers, science coordinators, and principals to expand their own and their students' understanding and appreciation of science. Among the activities planned are: (a) a series of one- day, in-service workshops for science coordinators, participant teachers, and participant principals, (b) 10-12 day in-residence intensive seminars for science teachers which will include field trips and tours of local industry, seminars, and work in the Simmons College computing and laboratory facilities, (c) brief preparatory and follow-up seminars with participants to assess the outcomes of the workshops, including the effectiveness of the instructional modules generated.